Integrated Laboratory of Power Electronics, Adjustable Speed Drives and Harmonic Filter & Compensator Design

Engineering - Electrical (55)

This project is developing an integrated laboratory to support courses on power electronics, adjustable electric drives, and harmonic filters and compensators by adapting laboratory material developed by a nationally prominent program at the University of Minnesota. In addition, the investigators are introducing new experiments, developing interfaces for computer control of the instruments, and introducing Internet tools for distant access to some features of the laboratory. Finally, they are creating a new course on harmonic filters and compensators design. The evaluation process will use an evaluation of student products and a self-assessment survey to characterize changes in student leaning outcomes resulting for this laboratory experience. The PIs' plan to disseminate their experiences through the widely attended, national workshop on teaching power electronics and electric drives.